Atomic Coherence

Professor Thomas will initiate a new program of investigating coherence properties of atomic ensembles by measuring the properties of photon echoes. In particular he will construct a magnetically compensated supersonic atomic beam to carry out experiments on correlated photon emission in samarium.